FRG: Collaborative Research: Atlas of Lie Groups and Representations

Abstact
Adams

The problem of computing the set of irreducible unitary
representations of a Lie group is one of the main unsolved problems in
representation theory. The primary goal of this project is to compute
the unitary dual of real and p-adic Lie groups, by a combination of
mathematical and computational techniques. In particular we plan to
develop a set of software packages for computing structure theory of
Lie groups, admissible representations, and unitary representations.

Representation theory has applications to a broad spectrum of
mathematical and scientific disciplines. Of particular significance is
the central role it plays in modern number theory, automorphic forms
and the Langlands program. On the other hand representation theory, in
particular the study of unitary representations, is a very technical
subject, and difficult for non-specialists. A primary goal of this
project is to make information about Lie groups and representation
accessible to a wide mathematical and scientific audience. Everything
we do is being documented and made available through our web site,
www.liegroups.org. This includes on-line tools for accessing
information about representation theory. In addition we are developing
a software package to do computations in structure theory, admissible
representations, and unitary representations. This is comparable to
the software package LiE for computing with semisimple Lie algebras,
although at a considerably higher level. We envision this project
playing a role in Lie groups comparable to the one the Atlas of Finite
Groups plays in finite group theory.